Cylindrical, Force-Adaptive Bearing Grinding

The objective of this research is to provide an improved method of grinding anti-friction bearing outer and inner race rings at lower cost but of higher quality. Current production practice requires an external grinding machine to grind the outside diameter (OD) or raceway, and an internal grinding machine to grind the inside diameter (ID) or internal raceway. This study seeks a method of grinding the OD and ID on one grinding machine, thereby eliminating the tooling cost, setup, maintenance, and capital required for one grinding machine. This method focuses on a device for securely holding and driving the thin-walled rings without distortion while providing access for the OD and ID grinding wheels to grind the OD and the ID of the bearing ring. This project covers a study of the out-of-roundness produced by asymmetrical rigidity in the clamping system. In addition, the propagation of initial stock runout to cause roundness errors in the finished bearing ring when grinding with fast, high-production cycles will be investigated. The work-holding and driving method coupled with force- adaptive control, using force sensors, provides a means for improving grinding performance and reducing production costs in the antifriction bearing industry.